Coarse-to-fine Discovery for Genetic Association

Mendelian traits are governed by single genes, and methods to identify
these genes have been remarkably successful. In stark contrast,
complex traits result from multiple genetic variants that are
individually neither necessary nor sufficient, often interacting with
each other and the environment. Indeed, collectively, genetic
variants identified to date for complex traits typically explain less
than 10% of the phenotype variance. No unified computational and
statistical framework has been advanced for organizing the discovery
process. To date, a single strategy has dominated: static
variant-by-variant analysis. In contrast, the investigators propose a
new coarse-to-fine statistical framework motivated by the biomedical
hypothesis that mutations contributing to a specific disease cluster
in specific pathways, and in genes within these pathways. Simulations
demonstrate that multi-scale, hierarchical coarse-to-fine sequential
tests have greater power than conventional methods under this
hypothesis. The researchers convert these heuristics into mathematics
and provide a comprehensive analysis, both empirical and theoretical,
of the trade-offs resulting from the introduction of carefully chosen
biases about the distribution of active variants within genes and
pathways. The new methods are applied to data from real genome-wide
association studies (GWAS) with large cohorts to validate their
utility.

Knowing the genetic variants that contribute to cardiovascular
disease, diabetes, autism, and other prevalent disorders would have
great value in identifying drug targets, predicting people at risk,
and suggesting personalized therapies. These diseases are not caused
by mutations in single genes, however, but by multiple mutations that
combine to disrupt multi-gene biological pathways. The investigators
therefore develop a new statistical framework that begins the search
for disease-risk genes at the pathway level, then sequentially narrows
the search to genes within pathways and alleles within genes.
Successful applications to ongoing human genetic studies involving
tens to hundreds of thousands of people identify genes contributing to
cardiovascular disease. More generally, the coarse-to-fine
statistical framework has great value in the current era of "big
data", with increasingly large data volumes calling for innovative
statistical methods.